Chiral NMR Shift Reagents

This Research at Undergraduate Institutions project, supported in the Analytical and Surface Chemistry Program, focusses on the preparation and characterization of chiral nuclear magnetic resonance shift reagents formed by coupling paramagnetic lanthanide ions with chiral resolving agents. Professor Thomas J. Wenzel and his undergraduate students at Bates College will combine the results from this work with known chromatographic retention data for optical isomers so that the assignment of the absolute configuration of enantiomers can be made from resolved nuclear magnetic resonance spectra. This work has application in the areas of the pharmaceutical industry and in magnetic resonance imaging reagents. Methods that permit the direct determination of the configuration of optical isomers will be developed by Professor Wenzel and his undergraduate students at Bates College. Reagents will be prepared that interact with optical isomers in a way that leads to resolved nuclear magnetic resonance spectra. Knowing how these reagents shift nuclear magnetic resonance spectra will permit the assignment of configuration to the optical isomers. This work has potential for application in pharmaceutical chemistry and in the are of magnetic resonance imaging.